CAREER: Time-domain Forward and Inverse Scattering Techniques for Ultrawideband Remote Sensing

Microwave ground penetrating radar can detect landmines, locate underground
pipes and identify subsurface defects in runways. Millimeter-waves can
penetrate through non-conductive walls and clothing, and many packaging.
Remote sensing systems based on millimeter waves allow detection of
contraband, plastic explosives, and ceramic weapons, while providing good
image identification and resolution. Because microwaves and mm-waves can
also better penetrate through dust, fog, and smoke, they are useful in
battlefield scenarios, terrorist attack responses, and fire rescue
operations.

In this project, we will study and develop new time-domain inversion
techniques that exploit fundamental aspects of ultra-wideband (UWB)
scattering and propagation in random (disordered) media. UWB remote sensing
systems are attractive because they take advantage of operation at both
lower (more penetration into lossy materials) and higher frequencies (larger
resolution), and are more immune to both atmospheric and multipath
interference effects. The new imaging and detection techniques will utilize
time-reversal synthetic back-propagation to achieve super-resolution,
time-domain statistical stability, and selective focusing of UWB signals in
disordered media. We will also develop new time-domain forward solvers for
UWB wave propagation in random media. The resulting forward solvers will
allow the simulation of virtual scenes of increasingly realistic remote
sensing scenarios and with increased geometric fidelity and numerical
accuracy, thus allowing for better synthetic discrimination of UWB weak
scattering mechanisms and improved overall efficiency of inverse scattering
algorithms.

The above research objectives are integrated with an educational component
aimed at developing a strong interdisciplinary program for engineering
students. At the undergraduate level, it will involve the curricular
revision and improvement of undergraduate courses, and the introduction of
undergraduate early research experiences aligned with the above research
objectives. At the graduate level, this project will develop two new
graduate courses, and will involve graduate students on all aspects of this
project.